Promoting Science Among English Language Learners (P-SELL) within a High-stakes Testing Policy Context

This five-year project will investigate the science learning of ELL students and other groups of students within the Florida system. Working with the Miami Dade schools and providing a comprehensive system of research, professional development, policy analysis and student outcomes this project will likely have broad impact and is timely for the upcoming NCLB science requirements. The methodology is sound. Both qualitative and quantitative methods are used and the research questions about how ELL students learn science and meet the demands for assessment and accountability are important. Predominantly these investigations will be conducted in the elementary school setting with specific emphasis on science, although other disciplines and literacies are likely to be integrated at this leve by the professionally developed teachers.